CAREER: New Clustering Algorithms Based on Robust Estimation and Genetic Niches with Applications to Web Usage Mining

This research project will develop a robust unsupervised clustering technique based on Genetic Niching. It includes the development of a statistical estimator and to use this estimator in a Baldwin learning scheme. It will also develop an evolutionary web personalization system as well as techniques for preprocessing web usage data. The career development plan will include training graduate students in web mining as well as integrating the results into the undergraduate curriculum.